Conference on Hilbert Schemes, Vector Bundles and their Interplay with Representation Theory

This award funds a conference in algebraic geometry
at the University of Missouri-Columbia, April 5-6, 2002.
The conference focuses on Hilbert schemes, vector bundles
and their interplay with representation theory.
It has two main goals. The first is to provide a forum for
algebraic geometers to meet with colleagues and learn of
recent research developments in these focused areas.
The second is to give graduate students, recent Ph.D's and women
an opportunity to broaden their mathematical horizons.
The conference includes 8 hour-long invited talks addressed by
leading mathematicians, and about 20 shorter communications.

The focused areaes of the conference are at the central stage
of recent confluence between mathematics and physics.
The mathematical achievements in these focused areaes
provide solid mathematical foundation
to the physics theories which are vital to explain the universe.
In addition, the conference will have a high impact on diversity,
as well as scientific and educational activities.